Environmentally Benign CO Insertion

ABSTRACT Proposal Title: Environmentally Benign CO Insertion Proposal Number: CTS-9816954 Principal Investigators: Steven S. C. Chuang Institution: University of Akron The proposal objective is to develop fundamental understanding of the mechanism of synthesis of alkyl or aryl carbamate/isocyanate by direct carbonylation of the amine or nitrocompound, over Pd/Al2O3 or Lewis-acid promoted catalysts, e.g. AlCl3-Pd/SiO2. The mechanistic study would involve the characterization of surface intermediates and rate determining steps. It will also reveal the role of Lewis acidity and basicity in promoting CO insertion. The study will also include the synthesis of Pd/Al2O3/MCM-41 catalysts by CVD of Pd carbonyl and trimethylaluminum. Experimental techniques include infrared spectroscopy, transient and steady state isotopic kinetics, and surface analysis. The primary importance of the work is the identification of single-step routes to the industrial synthesis of isocyanate/carbamate, alternative to the currently commercial process using the hazardous phosgene and amines. Isocyanates and carbamates are used as fine chemical and pharmaceutical intermediates.